Mantle Flow and the Development of Sub-Lithospheric Seismic Anisotropy

The style of convection beneath the Earth's tectonic plates is one of the outstanding
questions in solid earth geophysics. The lack of direct constraints on mantle flow makes
it difficult to determine how and on what scale global convective flow interacts with plate
motions beneath major plate boundaries. Recent advances in seismic imaging of the
mantle's anisotropic structure have the potential to provide important new constraints on
these flow patterns. Seismic anisotropy results from the preferred alignment of olivine
crystals in the sub-lithospheric flow field, and thus provides a direct estimate of the
direction of mantle flow. To date, most studies comparing observations of seismic
anisotropy to predictions of mantle flow have focused on either broad patterns of
anisotropy associated with global mantle convection or on regional studies at plate
boundaries that neglect the global flow field. However, abundant seismic evidence
indicates that regional flow associated with local plate motions and lithospheric structure
interacts with global convective flow in a more complicated way than can be explained
by current models. In this study the PIs will construct a series of 3-D numerical
simulations to investigate the interaction between global convective flow and regional
flow associated with strike-slip faults, such as the San Andreas. First, global flow models
will be constructed that incorporate flow driven by plate motions and mantle density
heterogeneity on a coarse resolution grid. The flow field derived from these models will
be used as boundary conditions on high-resolution regional scale models centered on the
fault zone. The predicted anisotropy derived from these detailed regional models will be
calculated using a series of proxies for the development of lattice preferred orientation
(LPO) in mantle rocks and compared to surface wave and shear-wave splitting data in
strike-slip environments. This study will improve our understanding of the relationship
between mantle flow, LPO, and seismic anisotropy. Understanding the pattern of mantle
flow beneath major strike-slip faults is important in order to quantify the tectonic forces
along strike-slip plate boundaries, as well as to determine seismic hazards associated with
these faults. The results of this project are directly relevant to many NSF sponsored
programs such as Margins, Ridge2000, CSEDI, and Earthscope.